Collaborative Research: Explaining, Exploring, and Scientific Reasoning in Museum Settings

In order to improve science, technology, mathematics, and engineering (STEM) learning, it is crucial to better understand the informal experiences that young children have that prepare them for formal science education. Young children are naturally curious about the world around them, and research in developmental psychology shows that families often support children in exploring and seeking explanations for scientific phenomena. It is less clear how to link children's natural curiosity and everyday parent-child interaction with more formal STEM learning. This collaborative project will team researchers from the University of California, Santa Cruz, the University of Texas, and Brown University with informal learning practitioners at the Children's Discovery Museum, The Thinkery, and the Providence Children's Museum in order to investigate how family interaction relates to children's causal learning, as well as how modifications to museum exhibit design and facilitation by museum staff influence families' styles of interaction and increase children's causal learning. This project is funded by the Research on Education and Learning (REAL) program which supports fundamental research by investigators from a range of disciplines in order to deepen what is known about STEM learning.

The project team will examine how ethnically and linguistically diverse samples of parents and children engage in collaborative scientific learning in three children's museums across the U.S. The research will combine observational studies of parent-child interaction in a real-world setting with experimental measures of children's causal learning. The investigators will examine how children explore and derive explanations for museum exhibits about mechanical gear function and fluid dynamics. In this way, the researchers will investigate the relation between styles of parent-child interaction and children's causal learning. The team will also investigate novel ways of presenting material within the exhibits to facilitate exploration and explanation. They will explore how signage, conversations with museum staff, parents' attitudes towards learning in museum settings, and parents' own prior knowledge about the exhibits can influence the parent-child interaction and subsequent causal learning. The project will advance the basic research goal of advancing what is known about what affects children's science content learning. It will also advance the practice-oriented goal of developing new strategies for the design of science museum exhibits and make recommendations for how parents can better talk to their children about scientific phenomena.